U.S.-France Cooperative Research (INRIA): A Semantic Foundation For C++ based IC/System Design

0208783
Gupta

This two-year award for U.S.-France cooperative research in embedded and hybrid computer systems involves Rajesh K. Gupta and Sandeep K. Shukla of the University of California, Irvine, Jean-Pierre Talpin and Paul Le Guernic of the French National Institute for Research in Computer Science and Engineering (INRIA) in Rennes (IRISA). The research is aimed at enabling C++ based design paradigms, a software programming language which can be used in object-oriented programming language IC systems and system on a chip (SOC) designs. The research addresses development of C++ usage, which is "semantically clean" and can be used in high-level hardware systems. This requires semantics that matches across compilers, high-level synthesis tools and simulated behavior of C++ design. The approach combines an unambiguous semantic framework named BDL (backbone description language) developed by researchers at IRISA and a split-level programming paradigm developed by the Irvine group.

This award represents the U.S. side of a joint proposal to the NSF and INRIA. NSF will cover travel funds and living expenses of the U.S. investigators and graduate students. INRIA will support the French researchers' visits to the United States. The U.S. and French teams represent expertise in software programming languages, hardware description languages, and formal semantics.